Improve Introduction to Photonics Course

This proposal supports a project designed to improve the demonstration and laboratory course of the Introduction to Photonics course at a community college located near military and industrial areas. It is designed for technicians, and not for future scholars. The proposer states "the project is significant in that it is a model program of curricular design which can aid the military and industry by supplying personnel who can design and operate equipment in the emerging fields of photonics." I concur with his statement. //